Partial Hyperbolicity and Rigidity

In the past few decades, the topic of partially hyperbolic dynamical
systems has emerged as one main direction in which the theory of
complicated ("chaotic") dynamical systems has extended beyond the
classical setting of hyperbolic dynamics. This research has been driven in
part by the realization that many practical applications of dynamical
systems to experimental phenomena require a much broader theory.

The PI's research over the last decade has focused on the fundamental
ergodic -- that is, statistical -- properties that partially hyperbolic
systems generically can be expected to display. The PI's work with her
collaborators has led recently to a proof of a "Boltzmann Ergodic
Hypothesis" for partially hyperbolic systems in low dimension: the
generic conservative partially hyperbolic system is ergodic.

The proposed research has two aspects:

* Extending the previous work of the PI and her collaborators on the
ergodicity of partially hyperbolic diffeomorphisms.

* A study of rigidity of solvable groups actions on manifolds, in
particular those actions that contain partially hyperbolic elements.

The material resulting from this research proposal will be widely
disseminated, through talks at conferences, online preprint servers, and
publication in scholarly journals. A significant component of this grant
is devoted to graduate-student training on the Ph.D. level.